Doctoral Dissertation Research: Globalization and Civic Education

SES#: 1003013
PI: Francisco O. Ramirez
Co-PI: Patricial E. Bromley
Stanford University

There is little theory or data to explain why textbooks in some countries are more likely than others to emphasize the protection of human rights and the rights of historically disadvantaged groups, such as women and minorities. Further, little is known about how much education systems have changed over time towards greater emphases on rights. This research develops a unique primary source of data consisting of over 600 high school history, civics and social studies textbooks published since 1970 from 70 countries. It will examine the features of books and countries that explain expanded emphases on rights discourse.

BROADER IMPACTS: The study contributes to developing an account of global changes in civic education, and it gives us insights into the concern by governments worldwide of building national identity by balancing the rights of individuals and diverse social groups.